AMP: New Mexico Alliance for Minority Participation

HRD-9353215 Jacquez, Ricardo New Mexico State University The purpose of this project is to increase the number of baccalaureate degrees awarded to minority students in science, engineering, and mathematics (SEM) by establishing an Alliance for Minority Participation (AMP) in New Mexico. The New Mexico AMP will be established through a partnership of 25 postsecondary institutions including 100 percent of the state's 20 public two- year colleges. A governing board will implement the alliance in meaningful collaborations with academia, industry, government and other entities. This issue is vitally important to new Mexico because: (1) about half of New Mexico's population is of minority heritage including 60 percent of all students in Grades K-12; and (2) New Mexico has the highest population percentage of American Indians and Hispanics of any state. The New Mexico AMP will be a multidisciplinary comprehensive undergraduate program. The Alliance will increase the number of minority students receiving baccalaureate degrees in SEM to over 700 per year by 1998 and to over 1,800 per year by the year 2003. The program will implement the following strategies: establish articulation agreements that will serve as the Alliance's cornerstone. Faculty development and distance learning systems will also be utilized; provide recruitment, retention, and assistantship programs; maximize summer bridge programs for minority students; and provide research experiences through summer internship programs.